Graduate Research Traineeship Program in Environmental Chemistry

Professor Samuel P. Kounaves is supported by a grant from the Chemistry Division and the Graduatae Education and Research Division of NSF for a Graduate Research Traineeship Program which will involve four graduate students who will receive training in environmental chemistry. This traineeship program includes participation by ten chemistry faculty at Tufts University who have brought together their expertise from traditional sub-disciplines of analytical, inorganic, physical and organic chemistry to produce a focussed research and teaching effort in environmental chemistry. A special emphasis will be placed on identifying, recruiting and encouraging women and minority students to apply, and to actively support and encourage them throughout their graduate training. %%% Our country's ability to produce trained scientists in the critical areas encompassed by environmental chemistry is not only vital to the health of our environment, but also to our scientific and economic leadership. In order to effectively manage the environment we need trained chemists who can apply their expertise in solving environmental problems in such diverse areas as: control of manufacturing processes; advanced environmental sensor and monitoring technologies; waste management; biodegradation; atmospheric and water modeling of chemical reactions; and better energy production and storage. The aim of this Graduate Research Traineeship Program is to provide a group of Ph.D. chemists who are trained to address these challenging problems.